Model Theory and Cell Decomposition for Valued Fields with Analytic Structure

Lipshitz and Robinson propose to continue their collaborative investigation
into the model theory of non-Archimedean valued fields with analytic
structure. The analytic geometry of closed balls over an algebraically
closed valued field, termed affinoid rigid analytic geometry, was developed
in the 1960s and 70s by Tate, Remmert and others. Lipshitz and Robinson have
previously extended affinoid geometry to the setting, which they term
quasi-affinoid, of relative affinoid geometry over an open ball. They
applied that theory to prove rigid analytic quantifier elimination and
quantifier simplification theorems that yield precise information about the
structure of sets definable by rigid analytic functions and their images.
They propose to continue this investigation. In particular, a central
remaining question is whether there is a quantifier elimination theorem in
the affinoid rigid analytic category. They also propose to continue their
recently-begun collaboration with Raf Cluckers into uniform cell
decomposition theorems for (equicharacteristic zero) valued fields with
analytic structure, extending the uniform algebraic cell decomposition of
Pas to the case of (equicharacteristic zero) valued fields with analytic
structure. In the discretely valued cases, the analytic structure is
provided by affinoid power series and in the non-discretely valued case by
quasi-affinoid power series. Key is a generalization of the classical
Mittag-Leffler decomposition to 'analytic' functions on a generalized
annulus with coefficients in a valued field with analytic structure that is
not necessarily complete or algebraically closed. Pas's algebraic cell
decomposition theorem gives results uniform in the prime p about the
rationality of p-adic zeta-functions. This investigation will extend that
theory to the analytic category and will also have applications to motivic
integration. The methods to be used in the investigation come from model
theory, rigid analytic function theory, commutative algebra and algebraic
geometry.

The Archimedean property of the real numbers is the fact that any two
nonzero real numbers are commensurate; that is, there is an integer multiple
of the first the magnitude of which exceeds the magnitude of the other. In
various branches of mathematics, e.g., number theory and algebraic geometry,
non-Archimedean fields arise. These are fields with a notion of magnitude
that does not satisfy the Archimedean property: the magnitude of a sum of
elements is no larger than the largest term of the sum. A natural example of
such a field is the field of Laurent series (power series in one variable
with at most finitely many negative exponents) with coefficients in a field
K. The nonzero elements of the coefficient field all have unit magnitude,
and the magnitude of the variable is considered to be small (1/2, say.)
Power series satisfy the implicit function theorem, a central property
linking the magnitude and the algebraic structure. Other non-Archimedean
fields satisfy Hensel's Lemma, a generalization of the implicit function
theorem. A great deal of the algebraic structure of such fields is coded in
the structures of the residue field (the ring of elements of unit magnitude
modulo the ideal of smaller elements; in the example, K) and the value group
(the set of magnitudes that occur; in the example, all integer powers of 2.)
Definable subsets over such fields can often be decomposed into finitely
many particularly simple pieces, called cells. This decomposition is very
useful in the evaluation of various integrals that arise in number-theoretic
and geometric contexts. Lipshitz and Robinson propose to extend
non-Archimedean cell decomposition results and applications, which are known
in the algebraic category, to the analytic category; i.e. to non-Archimedean
fields satisfying Hensel's Lemma on which, in addition to the polynomial
functions, a natural class of analytic functions is defined.